CAREER: Measurement and Experimental Analysis of Computer Dependability

This is a five year study for the development of a dependability evaluation framework and the tools for evaluating the dependability of computer systems. Tools being developed as part of this project include a portable dependability measurement tool to identify failure modes in Unix and Windows NT, a cyclotron- based transient fault injector, and a transient emulator that uses field- programmable gate arrays for fault simulation. Education plans include the development of courses at both the undergraduate and graduate level that introduce design and analysis for dependability. Also an interactive laboratory for student access to dependability analysis tools will be developed.